NBER Macroeconomics Annual Conference, 2000-2001

9912487
Bernanke

This grant continues a series of annual conferences on macroeconomics. These conferences, which began in 1986, have made a significant contribution to the testing of empirical implications of new theories as well as the use of relevant theory to analyze policy issues of current interest. The conference series will continue to encourage the writing of empirically oriented papers by both established and promising young economists. In addition, the series will continue to serve as a forum for communication among economists from the different schools of macroeconomics. The annual conference volume has become a widely cited and influential research reference.